Determining the Mechanisms Governing the Growth, Shape, and Size of the Ice Grains in a Water Ice Dusty Plasma

This award supports a study of nucleation and growth of ice grains in a plasma in laboratory and astrophysical environments. The project will use a unique Caltech laboratory plasma experiment that has electrons at approximately 40,000 degrees Fahrenheit with molecules, atoms, and ions at approximately minus 300 degrees. In the experiment, water vapor is injected into this cryogenic plasma where microscopic ice grains spontaneously form and grow, becoming negatively charged by collecting electrons on the surface. Advanced diagnostics will be used to investigate how the ice grains form and how they interact with each other and with their surroundings. Since conditions with a large internal temperature difference also occur in the plasmas used to make microelectronics, the fundamental knowledge gained under the project is expected to advance the technology for chip manufacturing. By participating in the project, two graduate students and one undergraduate student will become proficient in advanced technology using electronics, vacuum systems, spectroscopy, and novel plasma methods.

The Caltech experiment uses a vacuum chamber containing two parallel electrodes mounted on cryostats that cool to as low as 50 Kelvin. Gases such as hydrogen or argon are injected into the chamber and a radio frequency voltage is applied across the electrodes to break down the gas to form a plasma having about one part in a million ionization. The neutral gas and the plasma ions are at the cryogenic temperature of the electrodes whereas the electrons are at about 2 eV. Injection of a controlled amount of water vapor into this weakly-ionized plasma results in nucleation of water ice grains that levitate between the electrodes. Depending on operating parameters, the ice grains can capture a significant fraction of the plasma electrons and this depletion will be measured. Methods will be developed to measure ice grain properties just after nucleation when the grains are smaller than visible light wavelengths and so are invisible to cameras. A prediction that ice grain nucleation is associated with negatively charged OH radicals will be tested by correlating measurements of changes in OH and OH- abundance with ice grain formation and growth.